Evaluator support for Industry/University Cooperative Research Center for Software Engineering

9419522 Scarpello This three-year award provides funding for an evaluator to study the industry/university interaction occurring in the multi- university Center entitled "Industry/University Cooperative Research Center for Software Engineering." The Center's multi- research sites are at Purdue University (and Ball State University),University of Florida (and University of North Florida), and University of Oregon (and Oregon State University, the Oregon Graduate Institute of Science and Technology, and Portland State University.) The evaluator is well qualified to perform this study. The Program Manager recommends Dr. Vida Scarpello be awarded $30,000 for three years for this study.